NYI: VLSI Design for High Performance Signal Processing and Computation

The focus of this research is on the development of innovative VLSI design methodologies that will facilitate the next generation of high performance signal processing and computing systems. A variety of analog, digital, and mixed signal circuitry will be implemented for use in high performance computing applications including object recognition, smart sensors, adaptive neural networks, and programmable analog filters.